Equipment Request for a PC-McIDAS Interactive Computer System at Michigan State University

This award to the Michigan Meteorological Resources Program (MMRP) at Michigan State University will enhance instruction and research in the areas of meteorology and climatology. Funds are provided for the acquisition of an interactive meteorological computer system (UNIDATA/PC- McIDAS). This computer system will provide hardware and software for the near-real-time display of satellite images and conventional and diagnostic parameters. Contributions of PC-McIDAS to instruction include providing students with experience in interpreting satellite imagery and permitting classroom and laboratory demonstrations of the relationships between upper-air features, surface patterns, and cloud systems. Satellite images also will be archived for research purposes. In particular, this archive will be used for further research concerning the climate of Michigan.